International Workshop on the Runup of Long Ocean Waves Onto a Coastline

The objectives of this workshop are: (1) to review the state of the art of long wave (tsunami) runup onto a coastline; (2) help identify areas where knowledge is fragmented and incomplete; (3) assist in the transfer of information between theory and practice; (4) address the issues of the maintenance of numerical codes for runup predictions, and the development of certain bench mark problems for calibration and comparison purposes; and (5) suggest future directions in tsunami runup hazard mitigation research. The attendance of tsunami researchers from Japan and the Soviet Union is an important component in the planning of the workshop. Tsunami research is very active in these countries, but due to communication difficulties, this research is not well known in the United States. Another goal of this meeting is to bring together researchers who do not normally interact. This workshop brings together coastal engineers, oceanographers, geologists and mathematicians engaged in the study of wave runup, thereby improving the communication between specialists from different scientific disciplines who work on different aspects of the runup problem. The workshop addresses the related problem of computer code maintenance: given the expense of developing new codes or of resurrecting existing ones, guidelines are needed for the maintenance of existing codes. The dissemination of these codes is also of concern. Given the current capabilities of electronic mail, it appears that this offers a convenient method of dissemination, but there is a need to agree upon protocols for governing the transfer of research codes. It is expected that this workshop will have a very positive effect on directing research toward tsunami hazard mitigation, including a more conspicuous effort to contribute to the state of the art of tsunami warning systems (which are the responsibility of the National Weather Service within the National Oceanic and Atmospheric Administration).